A New Class of "Heteroscorpionate" Ligands for Inorganic Chemistry

This award in the Inorganic, Bioinorganic and Organometallic Chemistry program supports research in the laboratory of Professor Carl J. Carrano at Southwest Texas State University under the initiative on Research at Undergraduate Institutions. This research will explore the chemistry of `scorpionate` complexes. Scorpionates are trispyrazoly-borate and -methane ligands, which are facially coordinating and stabilize metals in a variety of oxidation states. A general synthetic route into heteroscorpionate ligands, which would incorporate a biologically relevant donor (thiol, phenol, carboxylate, etc.) as the `stinger` tail along with two pyrazolyl `claws,` will be developed. The facially coordinating nature of these ligands together with the introduction of heteroatoms will provide the basis for studying these compounds as models for metal ion active sites in proteins, such as as nitrile hydratase. This research at a primarily undergraduate institution will undertake the preparation of new complexes with ligands that will allow the compounds to serve as models for metal-centered active sites in proteins.